Effects of Flocculation on Direct Filtration

This objective of this project is to determine the effects of chemical addition and flocculation on the performance of deep-bed granular media filters that are utilized to remove particles from dilute aqueous suspensions. The effects of variations in the duration and intensity of mixing in flocculation and of coagulant type and dose on particle deposition and head loss development will be studied using a continuous flow direct filtration apparatus. The study is focussed on the effects of changes in particle size distributions on filtration, comparison of effects between coagulants, and sensitivity to changes in chemical conditions. Measurements of electrophoretic mobility, particle size distributions, light scattering phenomena, particle removal, and head loss development will be made. The removal of particles from water is a primary objective of engineered treatment processes because many waterborne pollutants of concern to human health are particles or are associated with particles. These pollutants include viruses, bacteria, Giardia lamblia cysts, adsorbed heavy metals and synthetic organics. Recent federal regulations that stipulate removal requirements for microbiological particles and a more stringent turbidity standard will result in a requirement of new or improved filtration facilities for many water supplies. An improved mechanistic understanding of the effects of chemical addition and flocculation on filtration performance should lead to more rational and cost-optimal designs for new facilities and better operation and control of existing filtration systems.